Experimental Probes of Density Wave Deformations

w:\awards\awards96\*.doc 9731257 Brill This experimental research project is devoted to properties of Charge Density Waves (CDW) and Spin Density Waves (SDW) in quasi- one-dimensional conductors. In these states, the electronic charge and/or spin density is spatially modulated, with a wavelength which differs from that of the underlying crystal. Many of the anomalous properties, however, result from the fact the Density Wave (DW) itself is deformable, and that its deformations, which can be charged, interact with each other and with other charges and defects in the crystal. This project focuses on the effect of such deformations in 1) modifying the elastic properties of DW materials, 2) allowing current to be injected into the DW, and 3) driving materials into glass-like states at low temperatures. Experimental techniques include: 1) electromodulated infrared transmission (to study charged deformations that accompany polarization and current injection in the CDW in blue bronze); 2) ac calorimetry to study the specific heat; and, 3) low frequency elastic measurements, which are made using a radio frequency cavity in conjunction with small magnets to strain the small samples. The combination of these techniques allows a search for glass-transitions in CDW materials. This research program is interdisciplinary in nature and involves several graduate students, who receive excellent training in preparation for careers in industry, government laboratories or academia. %%% This experimental research project is devoted to properties of "quasi-one-dimensional conducting" materials. These materials, which include Tantalum Triselenide and Potassium Molybdenum Trioxide, are often needle-like in their crystal forms and allow for electrical conduction along only one direction. These compounds in some cases undergo transitions at low te mperature to unusal states in which the motion of electrical charge occurs in a correlated way, in Charge Density Waves (CDW). A related state is called a Spin Density Wave (SDW). Such CDW and SDW states in quasi-one-dimensional conductors feature electronic charge and/or spin density which is spatially modulated, with a wavelength which differs from that of the underlying crystal. Electrical conduction in the CDW state occurs as the whole wave moves, rather than by individual charge motion as in copper. Many of the anomalous properties, however, result from the fact the Density Wave (DW) itself is deformable, and that its deformations, which can be charged, interact with each other and with other charges and defects in the crystal. This project focuses on the effect of such deformations in 1) modifying the elastic properties od DW materials, 2) allowing electrical current to be injected in to the DW, and 3) driving materials into glass-like states at low temperatures. Experimental techniques include: 1) electromodulated infrared transmission (to study charged deformations that accompany polarization and current injection in the CDW in blue bronze); 2) ac calorimetry to study the specific heat; and, 3) low frequency elastic measurements, which are made using a radio frequency cavity in conjunction with small magnets to strain the small samples. The combination of these techniques allows a search for glass-transitions in CDW materials. This research program is interdisciplinary in nature and involves several graduate students, who receive excellent training in preparation for careers in industry, government laboratories or academia. ***